Swiss Knots 2011: Knot Theory and Algebra

Abstract

Award: DMS-1105703
Principal Investigator: Thang Le, Jozef H. Przytycki

This proposal supports US participation at the conference Swiss
Knots 2011: Knot Theory and Algebra, to be held in Lake Thun,
Switzerland in May 2011. The goal of the conference is to bring
together experts and junior researchers to discuss recent
advances and perspectives for future developments in Knot Theory
and its interaction with Algebra. Specific topics include planar
algebras, categorification and link homology, virtual knots,
quantization, and various invariants of links and 3-manifolds.

The conference Swiss Knots 2011 will create a forum for the
exchange of ideas between the experts in knot theory and algebra.
Junior mathematicians will have a chance to learn about new
developments in the fields and will be able to present their own
research accomplishments. The participants will come from all
over the world. The US researchers and graduate students will
interact with mathematicians from other countries. Organizers
hope this opportunity will yield future collaborations. More
information about the conference can be found at the website
http://www.math.uzh.ch/swissknots2011/